Laboratory Improvement for Cell Biology

This project is providing instruments that improve five areas of a cell biology laboratory. An incubator and muffle furnace aid efforts to determine composition of cells. A photomicrographic microscope with capability to detect fluorescence is used to locate specific antigens by using FITC-antibodies. A cryostat is used to section fresh tissue that, selectively stained, is used to identify the cellular locations of specific molecules. Oxygen probes with accessories are used to follow electron flow rates in mitochondria and chloroplasts. A recording UV-VIS spectrophotometer enables undergraduates to do absorption spectra and to analyze enzyme reactions. Finally, electrophoresis chambers and a densitometer are used in the analysis of isozymes and the characterization of DNA. The objective is to raise the level of involvement of sophomore biology students in investigations of cell function. Early involvement of students in cell biology experiments is expected to result in higher scores on senior exams in the cell biology/molecular section of the Graduate Record Examination. The grantee institution is matching the NSF award with an equal sum obtained from non-Federal sources.